Postdoctoral Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Fellowship in Plant Biology. The applicant received her Ph.D. from the University of Minnesota in molecular biology studying a gene family involved in self-incompatibility in Arabidopsis. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Gerd Jurgens at the University of Munich in Germany. Her research entitled "Genetic analysis of pattern formation in the Arabidopsis embryo: establishment of cotyledon position" will broaden her scientific training into developmental biology.